REU Industrial Research for Undergraduates

GTE Laboratories will select 10 undergraduate students from a nationwide pool and team them with researchers at GTE to work on pre- selected research projects during the summer of 1990. This is a continuation of a long-running and successful program at GTE - Waltham, MA to provide meaningful research experiences in an industrial setting. Students may select from a long list of research and development projects currently underway at GTE including communications theory, networks performance, signal processing, software engineering and databases. Both oral and written reports are required of all student participants. GTE provides a unique opportunity for undergraduate students to learn about real world problems.